Cognitive Processes in Bilinguals (Human Cognition)

Dr. Kroll's ongoing research seeks to test and develop a model of memory representation in the bilingual. The model proposes that there are asymmetries in the strength of the connections between words in concepts in different languages that are a consequence of the manner in which the second language is acquired. During early stages of second language learning, the second language learner is hypothesized to rely on the first language to mediate access to meaning. As a greater fluency in the second language is achieved, a direct access to meaning becomes possible. The goal of this larger research is to identify the factors that mediate cognitive change for the adult second language learner. This project will further test the proposed model of bilingual memory representation by examining the conditions under which transfer occurs across languages, and by identifying aspects of individual performance in the first language that predict the attainment of second language fluency. Interactive activities at the host institution include: teaching a graduate seminar on bilingualism; involving undergraduate women at the host institution in the research project; and organizing a colloquium series and informal mentoring seminar for graduate student women. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.